Qualitative Analysis of Complex Dynamical Systems

During the last nineteen years, the principal investigator, his co- workers and students have conducted research in the qualitative analysis of complex dynamical systems. A great deal of this work is concerned with Lyapunov stability, Lagrange stability, input-output properties, well-posedness, existence and stability of periodic motions, decomposition, topological properties, and selected applications of interconnected dynamical systems. He proposes to continue his investigations of complex dynamical systems along the following lines: 1. Study qualitative properties of hybrid dynamical systems with an emphasis on digital implementations of dynamic controllers in digital feedback control systems. 2. Study the Lyapunov stability of infinite dimensional dynamical systems, using decomposition techniques (e.g., transformation into systems in block lower triangular form having strongly connected components as subsystems), and he proposes to emphasize toxic waste models in this work. 3. Views in neural networks as interconnected dynamical systems, study qualitative properties as well as synthesis procedures for several models of neural networks. 4. Using recent results for Hamilton-like variational methods of nonconservative dynamical systems, study power system models which include transfer conductances; he aims to provide analytical justification for several existing heuristic results which make use of path dependent energy functions for such systems. 5. Continue research on existence, nonexistence, stability and instability of periodic motions in complex dynamical systems. He is particularly interested in establishing rigorously the validity of various describing function methods. 6. Apply interval analysis techniques in the study of dynamical systems. The emphasis will be on parameter tolerance problems. 7. Study the stability of controlled viscoelastic structures using fractional time derivatives in the model formulation of the plant. These topics are clearly of great importance in theoretical studies as well as in applications. His methodology will involve functional analysis techniques, results from Floquet theory, invariance and comparison theory for differential equations, Lyapunov stability theory (for finite and infinite dimensional systems), I/O stability theory, interval analysis, etc.